Manipulating Matter with Light

9732449
Prentiss
This research focuses on three projects that utilize light to manipulate particles. The first uses spatially dependent optical pumping to create nanostructures on surfaces. The second uses a series of nanowires created by lithography to deflect the motion of helium atoms. The third uses optical tweezers in the analysis of adhesion properties of biological systems.